Engineering Deployment Teaching Initiative: Mechanical System Design for Reliability -- Technology Deployment

9410680 Mahadevan There is a real need for design engineers to be able to link the design decision making process with product reliability in a way that supports quantitative evaluation, more effective use of experiments, and engineering specifications on production processes and variables. It is also important that design tools be easy to integrate in the design process. The deployment strategy makes effective use of industry in the definition and evaluation of the deployed technology. It also uses computer networks, workshops, and conferences for rapid dissemination of the technology to universities and industry. The educational materials to be developed include a full description of the methodology, presentation material in the form of view graphs, simplified working models for spreadsheet calculations, a computer program with several options for probabilistic design analysis, and example problems. This effort will deploy a ready technology of computationally-based tools for reliability-based design analysis to the mechanical design communities in industry through an educational infrastructure. The developed technology has been found to be generic for mechanical systems reliability and has been shown to be directly usable in the design process without extensive knowledge of statistics and probability methods. It enables the designer to compute design uncertainties such as the probability of failure for any sensible design limit condition and to combine a number of such design limit conditions into a generalized estimate of system reliability. At every step, the designer is given direct feedback on the critical drivers of product unreliability and design confidence levels, facilitation re-design for enhanced reliability.